NSF-BSF: On the structure of the Jacobian in the lazy regime: analysis, efficient training, and applications

Modern artificial intelligence research centers on training neural networks to detect patterns in data and apply what they learn to new, previously unseen examples. These models have achieved remarkable success across science and engineering, yet many fundamental questions about how and why they learn remain unanswered. In particular, the standard training algorithm, backpropagation, is so deeply embedded in current practice that it has become difficult to separate what neural networks learn from the specific mechanics of how they are trained. This project seeks to study neural network training from new mathematical perspectives, drawing on tools from applied mathematics, statistics, and signal processing, to develop a deeper theoretical understanding of learning in large, overparameterized models. A central focus is the development and analysis of training algorithms that do not rely on backpropagation, which offers a novel lens for understanding the structure of learned representations and generalization behavior. The ability to train and analyze neural networks through these alternative frameworks has important implications across a variety of applications, including settings where data is scarce, measurements are noisy, or the primary goal is to reliably detect a faint signal rather than achieve raw predictive accuracy. The investigators will release open-source implementations of all developed algorithms and plan outreach activities including undergraduate research opportunities, graduate recruitment and training, high school programming on computational mathematics and AI, and a binational US-Israel workshop to build international research collaborations.

This project explores how the training dynamics of overparameterized neural models can be leveraged to improve computational efficiency and statistical performance on large datasets. The project investigates four interconnected research questions: (1) Can learning be implemented in neural models without full model backpropagation, and what may be the computational implications of such an approach? (2) Can laziness and Jacobian low rankness be efficiently estimated in large neural models to allow predictive benefits? (3) Are summary statistics of distributions learnable in short time, small network settings that are much more efficient than what standard (Neural Tangent Kernel) theory suggests? (4) How can these proposed algorithms benefit learning in the small data regime and the low signal to ratio (SNR) regime?